Markov Decision Problem and Linear Programming

The aim of this proposal is to further develop the complexity
theory of Linear Programming (LP), which continually plays a
central role in complexity analysis. In particular, we analyze the
Markov Decision Problem (MDP) with n states and m actions
for each state, a special class of real-number linear programs
with the Leontief matrix structure. The research objectives and
activities include the following: 1) Develop a new class of
algorithms, "combinatorial interior-point algorithms", for
solving the MDP, with the best achievable complexity result and
practical efficiency; and establish certain complexity lower
bounds for the MDP, which may provide a "negative result" on
the quest for whether or not there is a strongly polynomial time
algorithm for LP. 2) Both undergraduate and graduate students
will participate in the project, new course materials on the MDP
will be produced, and the PI will also give presentations to the
Stanford Summer Program for grades K-12 and community
college students in the Bay Area. 3) Apply the new fast MDP
algorithm to research activities in function areas such as Call
Admission and Routing, Strategic Asset Allocation, Supply-
Chain Management, Emissions Reductions, and Semiconductor
Wafer Fabrication.

Due to the relentless research effort in LP algorithms, a linear
program can be solved today one million times faster than it was
done twenty years ago. Businesses, large and small, use linear
programming models to optimize communication systems, to
schedule transportation networks, to control inventories, to plan
investments, and to maximize productivity. Furthermore, LP
has become a popular subject now taught in undergraduate,
graduate, and MBA curriculums, advancing human knowledge
and promoting scientific understanding. Recently, there has been
a renewed and strong interest in the MDP (a special large-scale
LP) due to its wide applications. With the rising demand in
telecommunication network resources, effective management is
as important as ever. Call Admission (deciding which calls to
accept/reject) and routing (allocating links in the network to
particular calls) are examples of decisions that must be made at
any point in time. The objective is to make the "best" use of
limited network resources. Such sequential decision problems
can be addressed by a dynamic programming model and the
MDP. Another application: the threat of global warming that
may result from the accumulation of carbon dioxide and other
"greenhouse gases" poses a serious dilemma. In particular, cuts
in emission levels bear a detrimental short-term impact on
economic growth. At the same time, a depleting environment
can severely hurt the economy - especially the agricultural
sector - in the longer term. To complicate the matter further,
scientific evidence on the relationship between emission levels
and global warming is inconclusive, leading to uncertainty about
the benefits of various cuts. One systematic approach to
considering these conflicting goals involves the formulation of a
dynamic system and MDP model that describes our
understanding of economic growth and environmental science,
as is done by Nordhaus. However, these MDP problems are too
complex to be solved by the current MDP solvers. A major
objective of the project is to develop new Markov Decision
Algorithms such that these models would be effectively
analyzed to satisfaction. Progress in the area of developing
efficient algorithms for solving large-scale stochastic decision
problems will be of great significance in improving industrial
competitiveness, scientific understanding, and technology
learning.